RUI: CC*IIE Campus Design: Planning Grant to Enhance Scientific Network Infrastructure at Carroll University

This planning grant supports Carroll University's efforts to develop a plan to improve its campus network infrastructure aligning with the goals described in NSF's Campus Cyberinfrastructure-Infrastructure, Innovation and Engineering (CC*IIE) Program. The 12-month planning period includes the following activities: evaluate existing IT infrastructure against STEM research and education needs on campus, identify unmet needs, and define a plan to address them; develop a campus cyberinfrastructure (CI) plan aligned with Carroll's strategic planning; and study and develop a science DMZ approach to re-architecting the campus border. Planning for network improvements at Carroll is especially timely to achieve maximum leverage in enabling research and education activities across lab facilities. The work also impacts the institution's existing emphasis on undergraduate research.